Monitoring Global Ocean Heat Content Changes by Internal Tide Oceanic Tomography

Ocean Heat Content (OHC) is a key indicator of global climate variability and change. However, it is a great challenge to observe OHC on a global scale. Observations with good coverage in space and time are only available in the last 10 years with the maturing of the Argo profiling float array. This study will obtain a 20-year-long record of global OHC changes from 1995-2014 with a method called Internal tide oceanic tomography (ITOT), in which the satellite altimetry data are used to precisely measure travel times for long-range internal tides. Just like in acoustic tomography, these travel times are analyzed to infer changes in OHC. This analysis will double the 10 years of time series available from Argo floats. More importantly, ITOT will provide an independent long-term, low-cost, environmentally-friendly observing system for global OHC changes. Since ocean warming contributes significantly to sea level rise, which has significant consequences to low-lying coastal regions, these observations have the potential for direct societal benefits. The project will communicate some of its results directly to the public. The team will make an educational animation showing how ocean warming is measured and how the novel ITOT technique works from the vantage point of space. This animation will be played for students visiting the lab, and in science talks and festivals in local K-12 schools. In addition, three summer undergraduate students will be trained in data analysis and interpretation, and poster presentation.

The analysis technique to be applied over the global ocean in this project is based on the preliminary regional analysis already conducted by this team. About 60 satellite-years of altimeter data from 1995-2014 will be analyzed. Specifically, it will (1) quantify annual variability, interannual variability, and bidecadal trend in global M2 and K1 internal tides, (2) construct the conversion function from the internal tide's travel time changes to OHC changes, and (3) construct a record of 20-year-long global OHC changes, and assess uncertainties using Argo measurements. The ultimate goal for this project is to develop the ITOT technique for future global OHC monitoring. This will improve our understanding of the temporal and spatial variability of global OHC, particularly in combination with in situ measurements from Argo floats, XBTs, and WOCE full-depth hydrography. The ITOT observations will provide useful constraints to ECCO2. The internal tide models may be used to correct internal tide noise in the Argo and XBT measurements. In addition, the monthly and yearly internal tide fields produced will provide constraints to global high-resolution, eddy-permitting numerical models of internal tides.